High School Chemistry Teacher Demonstration Workshop. Fast-Track Skills Building for Underprepared Chemistry Teachers

This four year project, sponsored by Creighton University, will offer 20 high school teachers of chemistry a program to provide content background and experience in the development of laboratory experiments and demonstrations. The teachers will take a two week program in the summer, and participate in follow-up activities during the subsequent academic year. This will be followed by another two week summer session during which issues which emerged during the academic year will be discussed. Altogether three groups of twenty teachers each will be served by this program. The NSF award is being matched by funds from the school districts and the university by an amount equivalent to 25% of the NSF grant.